Incorporation Of Fluorescence Spectroscopy into the Undergraduate Chemistry Curriculum

9350850 McGranaghan This project will allow the introduction of a Fluorescence Spectrophotometer into the chemistry curriculum. Fluorescence experiments will be added to the laboratory exercises scheduled for general, organic, physical, analytical, and biochemical courses. It will also be used in projects designed for Honors or Senior Research. This project will increase the knowledge and skills of undergraduate women science students as they prepare for careers in science, medicine or education. ***